Digital Circuits Laboratory

This project widens the scope of this institution's digital electronics course sequence by including the ability to customize advanced architecture logic circuits and by exposing students to logic analyzers for debugging and troubleshooting complex digital circuits. This project is supported by a laboratory which includes programmmable Logic Workstations running Altera developmnet software and HP Logic Analyzers. This collection of hardware and software permits students to design and simulate a circuit, using a computer, prior to constructing the circuit. This award is being matched by an equal sum from the grantee.